Fast 3-D Analysis and Macromodel Generation of Interconnect, Packaging and MEMs Using Green's Function Independent Accelerated Iterative Methods

Recent developments in fast integral equations solvers combined with
model-order reduction techniques has made it possible to automatically
generate reduced-order models directly from 3-D simulation of complicated
interconnect. This research is on extending the approach to higher
frequency analysis of interconnect, and to multiple-domain applications
such as micromachined devices. The topics that will be investigated
include: well-conditioned purely surface formulations for wide frequency
range full-wave analysis of interconnect, Greens function independent fast
solvers for integral formulations, and approaches to model-order reduction
based on drawing a connection between the optimal Hankel norm reduction
methods used in control theory and the Krylov-subspace methods used in
interconnect analysis. This combination of formulation, fast solver, and
robust model-order reduction makes it possible to automatically generate
macromodels for system-level simulation of a broad set of technology.